Rhode Island Information Technology Experiences for Students and Teachers (RI-ITEST)

Rhode Island Information Technology Experiences for Students and Teachers (RI-ITEST) is a comprehensive ITEST project for high school students and teachers. The goal of RI-ITEST is to prepare students from diverse backgrounds for careers in information technologies by engaging them in exciting, inquiry-based learning activities that use sophisticated computational models in support of a revolutionary science curriculum. It advances science education by enhancing the Physics First initiative in Rhode Island through the use of NSF funded student materials based on molecular modeling and promotes IT education by teaching modeling skills and providing students with career and vocational information on the use of computational models. The project provides over 120 hours of credit-bearing activities for 100 teachers and full support for classroom implementation. RI-ITEST is developing an optimal placement of the interactive materials from CC's Science of Atoms and Molecules project in the Physics First courses in Rhode Island; developing IT materials that are coordinated with the student materials that emphasize modeling skills and the career and vocational dimensions of computational modeling; preparing100 diverse Rhode Island science teachers in two cohorts to offer a course in the Physics-Chemistry-Biology sequence; developing materials and supports for using molecular dynamics and related IT materials for teachers in Rhode Island and elsewhere who are not ITEST participants; generating evidence for the effectiveness of the IT-enhanced project materials for increasing student learning and changing student attitudes about science, mathematics, and technology careers; reaching parents, guidance counselors, school administrators, and business partners with information about the project, student productions, and evidence for effectiveness; disseminating materials and findings to other teachers, programs, and districts nationwide.